Collaborative Research: Children's Development of Economic Skills and Preferences

Children live in complex economic environments. They make choices about what
to consume and they earn money. Children save, exchange goods, make
decisions under uncertainty, and they share and bargain among themselves and
with their parents and other adults. There are two main reasons why it is
important to improve our understanding of these sorts of economic behavior
in children. First, a better understanding of the development of children's
economic behavior will lead to a better understanding of economic behavior
in adults. Many economic norms, habits, and preferences are acquired in
childhood and this study will improve our understanding of how these
develop. Second, many of the decisions children make have consequences for
the rest of their lives. We believe that an understanding of children's
behavior based on economics will make it possible for society to help
children make better decisions as children.

The first goal of our research is to determine whether economic models are
applicable to children. If so, at what age does economics become useful for
understanding which different aspects of children's behavior? Second, we
will use computer based economic experiments to construct a panel data set
that will provide basic information on how children's economic behaviors,
such as rationality, altruism, risk behaviors, and bargaining, develop with
age. Our third objective is to develop an understanding of how demographic
variables and family policies influence children's preferences and economic
skills. A very practical and important benefit of this research will be a
better understanding of how parents, schools, and society can better prepare
children for the complex economic environment they will face as adults.
Currently there is almost no research on how children acquire economic
skills. Parents rely on information from folklore, their own experience, and
advice from unscientific studies and reports. Schools do not explicitly
teach what we, as economists, would regard as some of the most important
economic skills. Children are left to acquire basic economic decision making
skills haphazardly. This research will provide some of the basic descriptive
information needed to improve this situation.